Topology of 3-Manifolds

Proposal: DMS-0072429
PI: Robert Myers.

Abstract::
Over the years a nice conjectural picture has emerged of the
structure of closed 3-manifolds. It has been shaped by the
geometrization and virtual bundle conjectures of Thurston
and the compactification conjectures of Simon and of Marden.
These imply certain consequences for covering spaces of such
3-manifolds. Closed, orientable, irreducible 3-manifolds with
infinite fundamental group ought to have universal covering
space homeomorphic to Euclidean 3-space. Professor Myers will
continue his work on this problem by ruling out classes of
possible counterexamples through an analysis of group actions
on Whitehead manifolds; he will use a new result which promises
to extend his work on Whitehead manifolds which contain
non-trivial planes to those which do not. More generally,
covering spaces with finitely generated fundamental group ought
to be homeomorphic to interiors of compact 3-manifolds. He will
continue his work on this problem and on the closely related
problem of showing that the same conclusion holds for hyperbolic
3-manifolds with finitely generated fundamental group. Freedman
has reduced the latter problem to a purely topological problem
which seems accessible. Hyperbolic 3-manifolds of finite volume
ought to be finitely covered by surface bundles over the circle,
although very few non-trivial examples of this phenomenon are known.
Myers will attempt to construct more such examples and will explore
the extent to which the desired conclusion is implied by the failure
of the finitely generated intersection property in the fundamental
group. 3-manifolds with cubings of negative curvature ought to
be hyperbolic; Myers will investigate a method for trying to build
hyperbolic structures, trying to determine both its scope and
limitations. Finally, he will attempt to construct small knots in
non-Haken 3-manifolds.

Manifolds are spaces which generalize the familiar curves and
surfaces that live in ordinary 3-dimensional space. An n-manifold
locally looks like n-dimensional space; thus a curve is a 1-manifold,
and a surface is a 2-manifold. 3-manifolds are difficult to
visualize but can be described mathematically. Such spaces arise
as models of the universe in general relativity; in this role
they come equipped with geometries, i.e. ways of measuring distances,
angles, and curvature. Conjectures of Thurston, Simon, and Marden
suggest that the members of a large class of 3-manifolds have
particularly nice geometries and can be constructed from the
members of a small set of standard 3-manifolds by identifying
their points in certain ways. Professor Myers will attempt to
verify various important special cases of this conjectural picture.